Atmospheric Journals for Developing Countries

For the past six years, the AMS has provided developing countries with the Journal of Climate and Monthly Weather Review. The program has been extremely successful in providing background materials for the scientists in those countries so that they can be part of the international policy dialogue on environmental issues. As a matter of national policy, the United States is committed to build the scientific infrastructure of the developing nations. As a result, NOAA's Office of Global Programs, NASA's Office of Earth Science and the National Science Foundation have continued to provide the support for this significant endeavor. The support has enabled the AMS to provide these two important journals to 175 organizations.